Molecular Analysis of Chlamydomonas Mating-Type Locus

The mating-type (mt) locus of Chlamydomonas reinhardtii is a key regulatory unit which appears to govern life-cycle transitions in this simple eukaryote. It consists of both regulatory and structural genes maintained as a unit by recombinational suppression. Possibly it shares functional homologies with loci that govern embryological transitions in the metazoa and/or higher plants. The long-term objective of this research is to understand how mt works. As a first step, it is critical that the locus be defined at a molecular level. A cloned cDNA has been isolated which exhibits tight genetic linkage to the mating-type locus and is uniquely expressed within 10 min after gametes undergo cell fusion to form zygotes. Genomic clones homologous to this probe have been identified, and a "chromosome walk" has identified-300 kb of cloned DNA to either side of the gene. Three lines of experimentation are proposed. The first entails generation of deletions in diploid strains that cover known recessive mutations linked to mt; such deletions will provide physical landmarks in the walk and may also identify the loci of particular genes. The second entails an attempt to overcome the recombinational suppression in the region by sporulating diploids homozygous at mt; any recombinants between the mt-linked markers will again provide physical landmarks and provide a long-sought genetic map of the region. Finally, the recent cloning of homologous selectable genes and their successful use in Chlamydomonas transformation (reported by 3 independent labs) will permit us to attempt co-transformation of the mt-linked mutations using sectors of the existing walk and, if necessary, extensions of the walk. Putative transformants will be verified by genetic and molecular analysis. Clones certifiably transformed for interesting genes related to mating-type functions will be further analyzed: the relevant sector of the transforming DNA will be identified and sequenced to look for sequence motifs suggestive of DNA binding proteins, kinases, nucleases, and so on. The presence/absence/modification of each gene in the chromosome of the opposite mt can also be ascertained. In future years, the activities of these genes in gamete differentiation and zygote development can be assessed in detail. This study of basic reproduction in the model organism, Chlamydomonas, will provide information about genetic recombination and regulation. Chlamydomonas is of particular interest to plant biologists because it carries out photosynthesis. Understanding of fundamental processes in this organism can frequently be transferred and applied to higher plants.